Research Initiative on Market Frictions and Financial Risks

This award will fund a series of meetings where researchers will present new results in macroeconomics and financial economics focused on issues affecting the financial stability of the United States. This award is funded through a partnership between NSF and the U.S. Department of the Treasury, Office of Financial Research. The topics included all focus on frictions and risk. The key areas are market and financial innovations; securities financing, collateral, and cash markets; market microstructure, with emphasis on the trading processes and market participants who facilitate transactions; market connectedness; funding and capital market frictions; financial and economic stability; and financial and operational interconnectedness of the financial system.